The Prehistory of a Whaling Village: Further Investigation at Wales, Alaska

Abstract
Harritt
OPP-9974472

The proposed archaeological study examines relationships between prehistoric Siberian and Alaskan groups at Wales. Methods include archaeological documentation of natural and cultural deposits, radiocarbon dating, and faunal analysis. Findings will shed light on the origins, development, and dynamics of Western Thule culture and the prehistoric practice of whaling.